The Effect of Dopants on Group IV Surface Chemistry

9801024 Crowell This project aims for a fundamental understanding of the effect of dopants and alloying (additives) on the nanostructure and nanochemistry of epitaxial deposition. Emphasis is placed on determining the role of dopants in modifying the geometric, electronic, and chemical reactivity of Group IV semiconductor surfaces. The approach is to delineate the surface chemistry and reactivity of Group IV precursor reagents in the presence of additives and dopants on Si surfaces, to assess how nucleation begins, and how differences in the local deposition chemistry affect the growing films' nanostructure and morphology. The research strives for a basic understanding of the changes in bonding and electronic structure induced by dopants through characterizing the vibrational structure of deposition and etching intermediates, determining what effect additives and dopants have on reaction mechanisms and on the surface energetics; correlation of the deposition chemistry and the geometric structure at the nanometer scale is expected to lead to better understanding and process control. A broad range of spectroscopic probes will be used to characterize and correlate the deposition chemistry with the surface growth morphology. These studies will couple existing expertise and spectroscopic capability with variable temperature STM and ultraviolet and x-ray photoelectron spectroscopy studies. %%% The project addresses basic research issues in a topical area of materials science having high technological relevance. The research will contribute basic materials science knowledge at a fundamental level to important aspects of electronic/photonic devices. Experimental tools are now available to allow atomic level observation of elementary surface processes which when better understood will allow advances in both fundamental science and technology. The basic knowledge and understanding gained from the research is expected to contribute to improving the perform ance and s tability of advanced devices and circuits by providing a fundamental understanding and a basis for designing and producing improved materials, and materials combinations. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***